Improving Economics Education by Integrating the Latest Scholarship on the Economics of Race and Gender

This project will involve undergraduate economics professors in faculty development focusing on the new scholarship on the economics of women and minorities and assist them in developing, teaching and assessing methods of incorporating this scholarship into introductory economics courses.In August 1992 planning begins for a 10 day faculty development seminar (scheduled for June 1993) which focuses on the new scholarship and its integration into introductory economics courses. To accomplish these goals, seminar participants will be instructed in recent developments in the scholarship on women and minorities by scholars contributing these developments; work in teams to modify courses to incorporate the new scholarship; critique and refine these modifications; and develop techniques to assess the impact of these changes on student outcome.